Topics in Macroeconomics

9409009 Eichenbaum This project describes a research agenda in applied business cycle analysis. The topics to be analyzed fall into five broad categories. The first category concerns work aimed at empirically characterizing the effects of monetary policy shocks on aggregate economic activity and the borrowing and lending activities of different sectors in the US economy. The second category involves building structural models of the monetary transmission mechanism which have the potential to account for the features of the data documented in the first stage of the project. The third category of research topics concerns the role of time varying capital utilization rates and other forms of factor hording as propagation mechanisms in the business cycle. The fourth category of research concerns the development of econometric methods for estimating and assessing the empirical plausibility of structural business cycle models. The focus here will be on analyzing the small sample properties of Generalized Method of Moments procedures. Finally, the fifth category of research investigates the operating characteristics and welfare properties of different monetary policy rules using the class of structural monetary models developed in previous phases of the research program. Particular attention will be paid to rules which smooth nominal interest rates.